Research Experiences for Undergraduates in Chemistry at Idaho State University

This Chemistry Division award supports a new Research Experiences for Undergraduates site at Idaho State University. Dennis Strommen is the site's Program Director and he will be assisted by Karl De Jesus, Co-Program Director. Over the award period (2001-2003), ten students will be supported each summer in a ten-week program. The students recruited will be from two-year institutions primarily in the Northwest. Seven Chemistry faculty will offer research in the areas of atmospheric pollutants, solar energy conversion processes, mechanism of action of thalidomide, removal of Hg(II) from aqueous systems, development of cyanide detection, and chemometrics. As a major result of this program, the organizers anticipate the development of the interaction between Idaho State University and the two-year institutions in the Northwest. The achievement of this objective will be central to assessing the success of the REU site.